New Phosphorus and Boron Based Polymer Systems

This award is made in the Special Projects Office of the Chemistry Division and the Division of Materials Research under the Materials Synthesis and Processing Initiative. The research involves the synthesis and characterization of new phosphorous and boron-based polymers including poly(phosphadienes), poly(carbophosphazenes), poly(phosphanitrides), poly(iminoboranes) and poly(borazene/phosphazenes). Suitable starting monomers will be prepared. The incorporation of reactive phosphorous centers either as part of the polymer backbone or as pendant groups is expected to impart useful chemical, physical and electrical properties to these materials. A major objective is to prepare the first examples of tractable, well-characterized polymers based on the B-N, P=N, and/or B-N-P-N linkages. %%% Polymers with unsaturated B-N and P-N bonds may exhibit novel electronic properties and should be useful as precursors to B-N and P-N ceramic compositions.